Mathematical Sciences: Ergodic Theory and Number Theory

Hajian and Eigen will study ergodic measure preserving transformations defined on an infinite measure space and the effect these transformations have on unsolved problems of additive number theory. They also will investigate the spectral measure of an ergodic transformation. The intent is to extend some of the classical results on Riesz products to the Generalized Riesz products which arise from ergodic transformations. This project involves research in ergodic theory. Ergodic theory in general concerns understanding the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Under the heading "dynamics" can be placed the modern theory of how groups of abstract transformations act on smooth spaces. In this way ergodic theory makes contact with geometry in its quest to classify flows on homogeneous spaces.